Characterization, Control and Scheduling of Integrated Services

In this project researchers at the University of Miami collaborate
with researchers at the Instituto Tecnologico y de Estudios Superiores
de Monterrey to analytically and experimentally evaluate the
performance of proposed control (admission control and policing) and
scheduling (priority-based and general processor sharing ) algorithms in an
ATM environment of video-on-demand and voice applications. The work
combines new theoretical research on traffic characterization, control
and scheduling using conventional and computational intelligence
techniques (fuzzy logic and neuro-fuzzy based schemes), as well as
experimental evaluation and comparison of
already proposed techniques with the newly proposed ones.
Experimental networks will be set-up at both sites for evaluation of the
proposed algorithms. (URL: http://www.ece.miami.edu/christos/nsf_conacyt)